ECSU Noyce Scholars Program

The Elizabeth City State University (ECSU) Noyce Scholars Program increases the number of qualified STEM teachers in rural northeastern North Carolina with a special emphasis on the recruitment and retention of minorities and other underrepresented populations. The ECSU Teacher Education Program is accredited by NCATE and has met or exceeded state expectations since 1999. Noyce Scholarships increase the number of graduates of the program by four, producing 16 scholars over the five year project period. The four partnership school districts are Elizabeth City Pasquotank, Edenton-Chowan, Perquimans and Northampton, all of which are low performing and located in rural Northeast North Carolina. Students with majors in computer science, aviation, and engineering technology are also targeted as potential mathematics education scholars. Due to ECSUs proximity to numerous military bases, retirees and other military personnel will be recruited through the Troops to Teachers Program.